Open Questions in Aperiodic Tilings

Abstract

Award: DMS-0072573
Principal Investigator: Chaim Goodman-Strauss

For nearly 40 years, beginning with work by H. Wang and R. Berger, the
undecidability of certain questions regarding tilings and aperiodic
tilings have been studied. But as we extend our horizons and consider
tilings in more general contexts than the Euclidean Plane, we see that
many foundational questions are still open. In any particular,
reasonably well-defined setting (e.g., "tilings in the hyperbolic
plane by polygonal tiles, moved about by orientation-preserving
isometries"), there are several intertwined questions that may be
asked: 1) Is there a general method to determine whether a given set
of prototiles admits a tiling that includes a specified configuration?
(Is the "Completion Problem" decidable?; 2) Is there a general method
to determine whether a given set of prototiles can tile the space at
all? (Is the "Domino Problem" decidable?) 3) Is there a "weakly
aperiodic" protoset? (Such a protoset admits no tiling with a compact
fundamental domain.); 4) Is there a "strongly aperiodic" protoset?
(Such a protoset admits no tiling that is invariant under an
infinite-cyclic symmetry); 5) Is there a computable bound on the
Heesch number of protosets?; Is there a computable bound on the
isohedral number of protosets?; 7) Is the period problem decidable?
We consider conjectures concerning some of these questions in two
settings that have been thought about for 20 years: protosets in the
hyperbolic plane and monotiles in the Euclidean plane; and we sketch a
number of proposed approaches to these problems. We feel these
techniques should generalize and shed light on many foundation al
issues in discrete geometry.

We hope the project will be significant in several ways. First, these
problems, which have largely been seen as isolated from each other,
can all be seen as tightly connected. It is anticipated that
techniques will arise that will shed light on several aspects of this
problem. But moreover, the techniques under consideration may link
these questions in several topics in low-dimensional geometric
topology and combinatorial algebra. Finally, questions of
decidability and tractability are one of the central concerns of
theoretical computer science; form one point of view, we are simply
exploring a particular example, but hope that the techniques we
develop will be of more general use.